Postdoctoral Fellowship: MSPRF: Traveling Water Waves and Stellar Collapse: Nonlinear Analysis of Free Boundary Problems in Fluid Mechanics

This award is made as part of the FY 2026 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines such as Artificial Intelligence and Quantum Information Science, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Noah Stevenson is “Traveling Water Waves and Stellar Collapse: Nonlinear Analysis of Free Boundary Problems in Fluid Mechanics”. The host institution for the fellowship is ETH Zurich and the sponsoring scientist is Mikaela Iacobelli.